Design and Manufacturing Laboratory

This new course combines concepts from the students' prior course work and introduces them to a broad range of modern design and testing techniques for advanced materials. Fundamental engineering concepts are followed immediately with engineering problem-solving. A series of lab sessions have been formulated, each involving a task directed toward the reverse-engineering, evaluation, and improvement of a sample, manufactured mechanical product. Design and manufacture is approached as parallel rather than sequential tasks. The course also enhances learning by increasing the level of interaction on various levels. The course is arranged in a way which emphasizes discussion and oral examination rather than lecture. The instructor spends most of his/her time interacting with small groups of students rather than the entire class. The students are required to interact amongst each other in the organization and preparation of the lab reports. Unlike more traditional courses, grading will not be based strictly upon knowledge level. Student interest in the material will be stimulated because the proposed lab sessions have both a sequence and a unifying context which give the learning experience continuity. The course will give the students exposure to more modern and advanced mechanical testing techniques, engineering materials, and approaches to the design/manufacturing interaction than they currently receive.